Research Projects in Macroeconomics and Asset Pricing

9319807 Cochrane The large question that drives four fifths of this proposal is, "what are the underlying sources of macroeconomic risks?" Asset returns are sensitive indicators of macroeconomic events, and so are used to help uncover the important risks. There are four segments to the project. 1) An investigation of how firms alter their production plans to take account of risk. With this information, we can use firm behavior to understand the link between stock returns and economic fluctuations. For example, if market prices of oil- related stocks are high, firms ought to "insure" against oil price shocks by investing in machinery that is easily convertible to other fuels. 2) Tests of linear factor models. A toolkit of simple techniques will be developed for assessing standard asset pricing models, with a special focus on models that capture macroeconomic sources of risk. 3) Historical asset prices. Stock market data will be investigated back to 1700 on a few British companies, focusing on what happened to their returns through centuries of wars, government financing crunches and real fluctuations. 4) Real business cycles and asset prices. To date, standard models of business cycles generate predictions for stock prices that are just way off the mark. These models will be modified to incorporate interesting and realistic stock price behavior. 5) An unrelated project: Time-consistent health insurance. Can private health insurance contracts be structured so that no one is denied coverage, or is "job-locked". The answer is "yes." and this research describes and discusses practical implementation of such contracts. ***